Mathematical Sciences: Southwest Regional Institute in the Mathematical Sciences (SWRIMS)

This project seeks to tap the vast amount of latent mathematical ability in the young people of America. Its goal is to expose students in these critical years to mathematics as practiced by professionals and to empower them with a feeling that useful information can be gleaned from the simplest of models. Interacting with these professionals, seeing their lifestyles and work habits, becoming involved with the same problems, will yield a much more accurate picture of careers in the mathematical sciences in the rewards, both intellectual and financial, that they bring. It is also necessary to involve instructors of the mathematical sciences in this adventure because it is they who will transmit the excitement and importance of mathematics and science on a day-to-day basis.